C. elegans Meetings to be Held June 1-5, 1991 and June 1993 at the University of Wisconsin, Madison, Wisconsin

Research on the nematode Caenorhabditis elegans ranges from such global problems as the functioning of an entire nervous system and the evolution of form to the molecular bases of the gene structure and function. C.l elegans has becomes an important experimental organism for the study of many aspects of animal biology, particularly the genetic and molecular bases of development and behavior. Dr. Anderson is requesting funds to help support two C. elegans meetings to be held at the university of Wisconsin at Madison, WI in June of 1991 and 1993. Previous C. elegans meeting shave led to the exchange of knowledge, methods, mutants, and clones and have been vital in establishing the sense of excitement and collegiality that characterizes this field.